GEM: Numerical Simulations on the Ionospheric Signatures of Dayside Magnetopause Boundary layer

An integral component of the multi-agency U.S. Global Change Research Program (Our Changing Planet," Committee on Earth Sciences, 1991) is understanding and modeling the geospace environment. As part of its contribution to the U.S. Global Change Research Program, the National Science Foundation's Division of Atmospheric Sciences has established a new research initiative, Geospace Environment Modeling (GEM), with the goal of supporting basic research into the dynamical and structural properties of geospace, leading to the construction of a global geospace model with predictive capability. The subjects of the first GEM campaign are the magnetospheric boundary, the magnetosheath beyond it, and the connection from the boundary through the magnetosphere to the ionosphere. This grant is to study the interaction of the magnetized solar wind with the earth's magnetic field near the magnetopause boundary by means of three dimensional simulations. The simulation model will include the effects of magnetic field so that more realistic solar wind-dipole magnetic field interactions can be studied.